Oscillatory Integrals: Generalized Radon Transforms and Inverse Problems

Proposal Number: DMS-0138167
PI: Allan Greenleaf

ABSTRACT

Three problems will be investigated, related by the
common thread of oscillatory integrals with degenerate
(or singular) phase functions. First, estimates for Fourier
integral operators associated with two-sided Morin
singularities, both symmetric and asymmetric, will be
considered. This will be attempted by using new
decompositions of the operators that reflect the underlying
geometry of the phase functions. Secondly, global uniqueness
will be considered in the Calderon problem for low-regularity
conductivities and potentials in dimensions greater
than two, using Radon transform decompositions of the
potentials. Finally, a detailed microlocal analysis will
be made of the problem for low-regularity and/or conormal
conductivities in two dimensions.

The operators to be studied in this project transform
functions on one space to functions on another space
(possibly the same, possibly different) in a way in which
oscillation (cancellation caused by high-frequency waves)
plays an important role. This general type of operator has
been central to progress in the last thirty years in the
understanding of a wide range of partial differential
equations governing, e.g., wave propagation of sound and
electromagnetic waves. It turns out that the mathematical
analysis of CAT scanners and other noninvasive medical
imaging technologies falls under the same framework.
The current project should give a better understanding of the
mathematical foundations of these techniques. In the longer
term, this might contribute to refinement and improvement
of these imaging methods.